Molecular Spectroscopy and Atomic Collision Studies Using High-Resolution Lasers

This research project focuses on a joint experimental and theoretical research program that will address important questions in the areas of atomic collision physics, molecular dissociation and high resolution molecular spectroscopy. Several collision processes will be investigated by developing a technique using molecular photodissociation to produce fast, excited atoms whose kinetic energy and internal state can be precisely controlled. Additional experiments will study the photodissociation process itself and will map out high-lying repulsive molecular potentials. Finally, a series of spectroscopic studies will probe high-lying triplet states of the alkali dimmer NaK. On the broader impact of the program, the experimental results will test the quality of theoretical potentials and the understanding of molecular interaction. In addition, education will play a major role in the research, with impact for both graduate and undergraduate students.